Analysis, Algorithms and Computations for Model Problems in Physical Sciences

The proposed project is concerned with the development,
analysis and applications of numerical simulation tools
to a number of problems in computational sciences,
in particular, in computational physics and computational
material sciences. It is a continuation of PI's past research
work in this area that has contributed to the modeling, analysis,
and computation of various problems in superconductivity,
Bose-Einstein condensation, and phase transitions in binary and
multicomponent alloys.

In the proposed work, while building upon the past progress,
the PI will take on new initiatives in the study of some interesting
physical problems at various time and spatial scales
and in the design of new algorithms and efficient
solvers which can then be used to understand experimental phenomena
and the underlying physical and material properties.
The proposed works are to be carried out in the following aspects:
to develop or refine mathematical models for the underlying physical
problems, so to enlarge the range of validity of such models; to
analyze these models in order to gain further understanding of their
properties and of their solutions; to develop, analyze, and
implement algorithms, in particular, parallel and adaptive algorithms,
for the numerical simulation of these models; and to use our algorithms
and codes, together with physicists and material scientists,
to study some interesting phenomena in physics and material sciences,
including the further studies on the quantized vortices in
superconductors and Bose-Einstein condensates, on the effects of
fluctuation and on the validity and the extension of mezoscopic
phenomenological models. While we will focus on developing innovative
mathematical theory and computational algorithms, comparisons with the
physical experiments will also be made whenever possible.